Trace Gas Absorption w/Chemical Reaction with Falling Drops

This study focuses on the absorption and oxidation of acid gases in water droplets. These processes are important in theunderstanding of acid rain and the design of air pollution control devices. The theoretical analysis and mathematical modelling of these processes will be performed, as will an experimental investigation. The fluid flow fields and the mass transfer with chemical reaction which occurs in single drops and two drop sets will be analyzed. These submodels will form the basis of a comprehensive analysis of trace gas absorption with chemical reaction in falling drops. Two research papers dealing with the research effort will be submitted to the Chemical Engineering Journal and Chemical Engineering Science.